RIA: Error-Based Design of Time Integration Algorithms

A new method for the analysis and design of time integration algorithms is to be developed. This method will allow an algorithm to be determined from a given set of error acceptability criteria for the numerical response. Basically, an algorithm will be analyzed as a filter which converts input (load) into output (response) and in the process distorts the response above which is normally associated with the structural transfer function. Thus, a numerical transfer function is used to measure the effect in phase and amplitude measures for a particular integrator. a parametric analysis of structural parameters (load, structure, load-structure interaction spectra) and numerical parameters will be performed to obtain an overall view of how the method will perform under different situations. Since the behavior of these measures is a function of these parameters, appropriate integrators and associated parameters can be chosen depending on individual simulation characteristics in conjunction with defined error criteria. This methodology will enable more realistic values of timesteps to chosen as well as appropriate integrators. The introduction of these more efficient methods will allow simulation to be longer and finer in spatial resolution. Ultimately more realistic simulations experiments. Applications will include the development of an integrator for dynamic fracture propagation which involves a stiff system having both high accuracy requirements as well as high and low frequency content.